Oceanic Paleochemistry and Deep Ocean Variability

9402198 BOYLE With an increase in the number of laboratories throughout the world making good Cd measurements, it is anticipated that there will be a rapid expansion of available global Cd database in which to evaluate the role of chemical changes in the changing atmospheric CO2 and the influence of ocean circulation on global climate change. This research project will concentrate on some particular issues within this global scale context. Specially, it will (1) Establish how rapidly deep ocean chemical composition can change by studying foraminiferal trace elements in high deposition rate cores, single individuals (to search for "modes" of deepwater chemistry, and most importantly, deep sea corals) which should allow for a very high resolution view of deepwater chemistry; (2) Examine the origins of differences between 13C, Cd and Ba paleochemical signals from detailed studies of Northwest Pacific cores and through simple ocean geochemical models; (3) Continue to generate long high resolution paleochemical records from key basins of the world oceans in order to explore the spectral links between deep ocean chemistry, atmospheric PCO2, and global climate; and (4) Continue testing of forminiferal accuracy as paleochemical reorders by studying core tops from diverse environments, individual benthic specimens from high sedimentation rate cores, and comparing different calcitic and aragonitic benthic species and deep sea corals.